Experimental Partnership - Comprehensive Retargetable Embedded Systems Software Development Environment

EIA-0072043
Jack Davidson
University of Virginia

EIA-0072043
Jack Davidson
University of Virginia

Embedded computer systems have become key building blocks of our nation's vital infrastructures.
Embedded computers are components in a large number of other automated devices and consumer appliances. Examples of automated devices include air conditioning systems, elevators, fire control systems, security systems, lighting systems, etc. Consumer appliances with embedded computers include VCRs, facsimile machines, set-top boxes, modems, cellular telephones, pagers, printers, photocopiers, etc.

This project seeks to address the embedded software development problem by developing algorithm tools, and techniques to support embedded system software development using high-level languages. Initially, our research will focus on algorithms and tools targeted at digital signal processors and the embedded applications they support.

This project will build on and extend the Zephyr compiler infrastructure being developed at the University of Virginia and Princeton University. The goal of the Zephyr project is to build compiler infrastructure that enables and supports cutting-edge computing systems research.